NSF Minority Postdoctoral Research Fellowship for FY 2000

This action funds an NSF Minority Postdoctoral Research Fellowship for 2000.

The research and training plan is in the area of Eukaryotic Genetics and is entitled "Analysis of the Role of Bulk Chromatin Proteins in Regulating Meiotic Recombination in the Yeast Saccharomyces cerevisiae". This research investigates the role of general chromatin configuration in regulating crossover recombination. In particular, the functions of bulk chromatin proteins Bdf1, Hho1, Dot1, and Chd1 in meiosis in yeast S. cerevisiae are being examined via two independent approaches: 1. Various events of meiosis are analyzed in cells whose genes encoding these proteins have been deleted, and 2. Proteins that display significant meiotic function are characterized in wild-type cells at different stages of meiosis. Also, chromosomal localization of relevant proteins are being examined.